Laser Microprobe Study: Isotope Thermometry and the Effectsof Metamorphism

The principal investigator will utilize sulfur isotopes and the laser microprobe to evaluate the effect of metamorphism on the degree of re-equilibration of sulfur isotope thermometers. By studying sixteen different volcanogenic massive sulfide deposits ranging in metamorphic grade from zeolite to amphibolite facies, he will also determine whether temperature information is preserved in such deposits.